NSF Minority Graduate Student Travel Award

This award funds a Minority Graduate Student Travel Award. These awards permit minority graduate students who plan to apply for an NSF Minority Postdoctoral Research Fellowship to make visits to prospective sponsoring scientists prior to submitting a fellowship application.

Mr. Howard plans to visit Dr. Andrew Mason at the University of Toronto and Dr. Charles Daugherty at Victoria University of Wellington, New Zealand. His research interests are in physiology and behavior. These visits will allow him to select a program that will best expand his research experiences and develop a research area for the future.